Teacher Development Program for High School Chemistry Teachers

Teacher Development Program for High School Chemistry Teachers Designed for underprepared chemistry teachers in schools of the metropolitan Cleveland area with primarily minority students, this project offers two residential intensive two- week workshops in each of three summers. Sixteen participants will be selected for each of the two workshops the first year, with twenty each in years two and three. In each year, the first two-week workshop will focus on an in- depth understanding of basic chemical principles, the role of the laboratory and problem solving; the second workshop in each year will specialize in organic chemistry and biochemistry. Throughout the sessions, strong emphasis will be placed on performing and directing hands-on laboratory work, deepening subject-matter knowledge, developing effective teaching skills, and bridging classroom chemistry with research and industry. The latter will be accomplished by selected site visits to chemical research and industrial facilities located in the area as well as campus presentations by local visiting scientists. Several master teachers of high school chemistry will serve as consultants to model successful practices. Workshop and seminar sessions on eight Saturdays during each ensuing school year are planned to provide continued assistance, support, motivation, and a networking scheme to the participants.